Postdoctoral Fellowship: MSPRF: Topology and Combinatorics of Critical Orbit Curves

This award is made as part of the FY 2025 Mathematical Sciences Postdoctoral Research Fellowships Program. Each of the fellowships supports a research and training project at a host institution in the mathematical sciences, including applications to other disciplines, under the mentorship of a sponsoring scientist.

The title of the project for this fellowship to Caroline Davis is “Topology and Combinatorics of Critical Orbit Curves”. The host institution for the fellowship is Stony Brook University and the sponsoring scientist is Dzmitry Dudko.